SHF: Small: Testing and Analysis for Reliable Numerical Software

Society increasingly depends on numerical software, which uses finite
precision arithmetic to approximate the reals and necessarily
introduces approximation and error. Cyber-physical systems are
ubiquitous and rely on numerical software. Anti-lock breaks and
medical devices such as haptic control systems for remote surgery are
two such examples. Numerical errors in these systems can be
disastrous. Toyota suspects such errors contributed to its costly
acceleration problem; the Ariane 5 rocket exploded due to an overflow
in its inertial reference system; and scientists have had to retract
papers from prestigious journals (e.g., Nature). Techniques and tools
for improving numerical software reliability are critically needed.

This project explores practical techniques to test and analyze
numerical software. It focuses on the two most fundamental sources of
numerical errors: uncaught exceptions, and numerical stability and
accuracy. The proposed techniques are centered around symbolic
execution and guided testing, and domain insights are used to develop
principles and heuristics to make the techniques practical. This
project considers three main dimensions: (1) problem formulation and
analysis strategies, (2) constraint solving, and (3) implementation
techniques. It aims at advancing the state-of-the-art in engineering
robust numerical software to help avoid costly, dangerous errors.